Understanding Individual Differences in Judgmental Performance

Abstract

Stewart # 0078783

What is necessary for good judgment in uncertain situations? For any
given judgment problem, some people perform better than others. This is
true both for everyday judgments, such as a driver judging a safe speed or
a consumer judging the quality of a product, and for professional
judgments, such as a physician judging the severity of a child's illness
or a weather forecaster judging the probability that a storm will spawn
tornadoes. Are the differences in judgmental performance simply a result
of differences in experience and training, or do they reflect differences
in fundamental cognitive abilities necessary for good judgment?

This study will examine three cognitive abilities and how they relate to
good judgment: (a) intelligence (b) good statistical reasoning and (c)
the ability to learn to use information accurately in new situations.

Members of the local community and expert weather forecasters will be
recruited to participate. For both groups, two everyday judgment problems
will be used to measure judgment performance. In addition, the weather
forecasters' professional judgment performance will be assessed based on
their track record as forecasters and their performance on a new task.

The data will be used to explore how judgmental skill in everyday and
professional judgment tasks is related to other cognitive abilities. The
study results will improve our understanding of what goes into accurate
judgment. They will also contribute to the training of professionals and
to the design of systems to support better judgment and decision making in
uncertain situations.